Video Enhancement for Improving Microscopy, Dissection and Laboratory Investigations in Biology

The laboratory experiences are linked to the lecture presentation by incorporating laboratory video images into the computer assisted multimedia presentations. The multimedia presentation program has the flexibility to retrieve laboratory images for display at any point in the lecture. A computer driven video system enhances microscopy, dissection, demonstrations and experiments. The laboratory exercises are displayed live on the closed circuit video system and selected segments are stored on computer disc or video tape for further analysis or review. The video system captures, stores and instantly retrieves rare microscopic motions and other unique laboratory observations. Images are enlarged, and then compared in split screen.